Evolutionary Systems and Weighted Translation Operators

9400518 Latushkin The Principal Investigator proposes to solve some problems at the intersection of the asymptotic theory of linear semigroups and infinite dimensional dynamical systems to describe the asymptotic properties (dichotomy, hyberbolicity, Lyapunov exponents) of evolutionary systems and semiflows on Banach spaces. The main technical tool is to involve for this description the semigroups of weighted translation operators. This technique would allow one to view the classical Lyapunov theorems in a fairly unexpected perspective. This work has its roots in the analysis of stability of processes. These processes are frequently described by differential equations and the stability is determined by an analysis of the asymptotic or large time behavior of the solutions. The solutions of these equations live naturally in abstract structures called Banach spaces and the study of stability questions can be formulated in terms of a metric or norm. In this way the techniques of operator theory can be used effectively to study stability of dynamical systems. The theory has applications in dynamo theory and the dynamics of chemical reactors. ***